Mathematical Sciences: Research in Algebraic Combinatorics

This project is concerned with research in algebraic combinatorics and combinatorics motivated by theoretical computer science. The principal investigator will consider problems pertaining to an algebraic and topological investigation of partially ordered sets of combinatorial objects, sorting of partially ordered sets, and graph coloring in connection with distributed computing. This research falls in the broad category of combinatorics, which is one of the most active fields in today's mathematics. Combinatorics represents a systematization of the very first of all mathematical activities, counting. In its modern development, however, combinatorics has gone beyond just counting to make use of a wide variety of advanced mathematical techniques. The field has had an explosive development in the past few decades because of its importance in communications and information technology.